REU Site Summer Research Program in Operator Theory and Combinatorics

The Department of Mathematics at California Polytechnic State University, San Luis Obispo will provide opportunities for summer research for up to ten undergraduates. Recruitment will take place nationwide, but our recruitment will be focused on students from universities in California. The research emphasis will be in the fields of operator theory and combinatorics. The students will attend seminars with participating faculty and work individually with faculty, many of whom have experience doing research with undergraduates. The students will also have the opportunity to work collaboratively with and give talks to their peers, as well as write a final report with their research results. The program will run for eight weeks, and should be compatible with both a quarter system and a semester system.